Analysis and Model Simulation of Velocity Data from Gay Head

Detailed analysis of tidal and residual flow around headlands will be continued on closely-spaced data obtained with an acoustic Doppler current profiler near Gay Head, Martha,s Vineyard. These data will be combined with a model to investigate the complex frictional and advective effects generated at a headland in a shallow water regime.